Algorithms for Signal Processing

This project evaluates the potential of using neural network computations for solving certain signal processing problems. Basic issues such as feasibility, robustness, and computability are addressed with the major goal being to lay theoretical and algorithmic foundations for the use of neural processing techniques. Guidance and comparisons with classical approximation theory and modern data analysis and machine learning theory are sought. Preliminary studies indicate the need for enormous computational resources to compute mature networks for solving nonlinear prediction problems and nontrivial classifications. High performance parallel algorithms for computing and evaluating mature neural nets are developed and implemented on the CEDAR multiprocessor at the University of Illinois. This is a timely work on the theoretical analysis of neural networks. The principal investigator is a capable researcher and the award is strongly recommended.